Kinematics and Crustal Deformation of the Yellowstone Hot Spot: Observations of GPS and Precision Gravity Networks

This is a 3-year continuation of GPS and precision gravity measurements and modeling of the kinematics of the Yellowstone system. The PI will 1) observe in 1989 and 1991, a 50+ station GPS network for systematic long-term studies of horizontal and vertical deformation focusing on the caldera, 2) observe a 208 station precision gravity network particularly in areas of the caldera that may be near magma bodies, 3) observe GPS at trilateration stations established in 1950 across the Yellowstone caldera, 4) compare GPS and trilateration measurements at key sites that were originally observed by EDM in 1975, 5) invert the newly acquired GPS, leveling and precision gravity data using Green's function formulations for source geometries, and 6) assess the temporal and spatial relationships of crustal deformation to rheological models and the temporal and spatial variations in seismicity and stress fields. The study will address several key issues: 1) the kinematics of a volcanically and seismically active continental hot spot, 2) a comparison of the methodologies of GPS. EDM and precision gravity to assess deformation sources, and 3) to determine the inter-relationships between volcanic features, seismicity, crustal deformation and magmatic sources.